Collaborative Research: Validity Evidence for Measurement in Mathematics Education (VM2ED)

As education has shifted more towards data-driven policy and research initiatives in the last several decades, data for policy-related aspects are often expected to be more quantitative in nature. This has led to the increase in use of more quantitative measures in STEM education, including mathematics education. Unfortunately, evidence regarding the validity and reliability of mathematics education measures is lacking. Furthermore, the evidence for validity for quantitative tools and measures is not conceptualized or defined consistently by researchers in the field. The purpose of this project is to fully explore the mathematics education literature to synthesize what validity evidence is available for quantitative assessments in mathematics education. Drawing on the results of the synthesis study, the researchers will design, curate, and disseminate a repository of quantitative assessments used in mathematics education teaching and research. The researchers will also create materials and online training for a variety of scholars and practitioners to use the repository.

The team will address two main research questions: 1) How might validity evidence related to quantitative assessments used in mathematics education research be categorized and described? and 2) What validity evidence exists for quantitative instruments used in mathematics education scholarship since 2000? Researchers will use a cross-comparative methodology which involves conducting a literature search and then analyzing and categorizing features of instruments. The research team will examine cases (i.e., assessments described in manuscripts) in which quantitative instruments have been used, alongside specific features such as the construct measured, evidence related to sources of validity, and study sample. The team will then design, develop, and deploy a free online digital repository for the categorization of instruments and describe their associated validity evidence.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.